Modulation of the Heme Pocket Conformation or Dual Concerted Mechanism upon Substitution of Hydrogen Sulfide by Oxygen Binding to an Unusual Hemoglobin?

Lopez-Garriga
MCB-9974961

The objective of this research is to investigate the molecular basis for oxidation-reduction, ligand selection, and ligand stabilization processes of hemoglobin (HbI) isolated from Lucina pectinata. This hemoglobin is probably the only heme protein that carries out its function, to transport H2S to a bacteria symbion, in a hydrogen-sulfide bound ferric state. The presence of H-bonding between the heme-Fe+3 SH2 moiety and the Gln(E7) group is postulated to stabilize the HbISH2 center. Likewise, other amino groups, in particular, Gln(E7), Phe(B10), and Phe(E11) may interact with other HbI ligands, CO and O2. In order to understand the structural and functional characteristics of this enzyme, site-directed mutants of HbI will be used to determine its association and dissociation constants with different ligands as a function of pH. These studies in conjunction with the FTIR and resonance Raman work should produce new insight about factors that control H2S binding, transport, and delivery.

The goal of this research is to study the ligand affinity differences in heme proteins. At present, it is not established whether these differences arise from electrostatic effects, from steric constraints, or from hydrogen-bonding differences. It is hoped that the these studies with hemoglobin I from Lucina pectinata will resolve some of these issues and produce new insight about the structural and functional characteristics of this unusual hemoglobin. The work is likely to produce information that may be useful in the design of recombinant HbI proteins with commercial uses, for example, as a specific H2S biosensor. These proteins may also be used for the removal of toxic H2S from industrial or natural processes, such as anaerobic fermentation, sewage, and natural gas production.